Eukaryotic Chromosomes Replication Conference, to be held atCold Spring Harbor, September 4-8, 1991.

This request is for the support of participants for a meeting "Eukaryotic Chromosome Replication" to be held at Cold Spring Harbor from September 4 to September 8, 1991. This is the third such meeting with the goal of bringing together scientists working in this rapidly expanding field in order to encourage the exchange of data and techniques and to allow for the critical evaluation of the status and progress of the on-going research.***//